On the Theory of Automorphic Forms and Applications

Abstract of Dihua Jiang's proposal (DMS-0400414)

The Principal Investigator, Dihua Jiang, works on some basic problems
in the modern theory of automorphic forms and L-functions. In the global
theory, he investigates the structures of the discrete spectrum of
automorphic forms and characterizes the non-vanishing of the central values
or the residues of automorphic L-functions in terms of periods of automorphic
forms, using ideas from the classical invariant theory. In the
local theory, his research attacks the local Langlands conjectures and
related basic problems in harmonic analysis of p-adic groups. His long term
goal is to understand the general local-global-automorphic principles in the
theory of automorphic forms, which reflects one of the basic principles in
arithmetic and number theory.

The theory of automorphic forms has been studied for a long time and was
rooted in the work of Gauss and Riemann among others. It became early on a
meeting ground for analysis and number theory, and has developed as an
indispensable tool in analytic number theory, algebraic number theory,
Diophantine problems, arithmetic and algebraic geometry, and recently in
infinite dimensional Lie algebras and mathematical physics. The recent proof
of the Taniyama-Shimura-Weil conjecture on elliptic curves and the Fermat's
last theorem are typical examples. The modern theory of automorphic forms and
L-functions was developed based on the understanding of automorphic forms
in terms of the representation theory of and the harmonic analysis over
locally compact topological groups. Langlands gave a systematic conjectural
description of relations between L-functions in number theory or algebraic
geometry and those arising in the theory of automorphic forms. Jiang's work
is concentrated on the basic conjectures of Langlands and applications to
number thoery.